Development of Resonant Mass Gravitational Wave Antennae

The Rochester group will pursue a program of research related to improving the sensitivity of acoustic gravitational wave detectors. They will concentrate on improving electromechanical transducers to extract signals from antennas. They will also explore technology needed for greatly improved detectors of the future. This work will contribute to the ongoing efforts around the world to seek gravitational waves predicted by Einstein to come from cataclysmic astronomical events throughout the universe.